SIRG: "Being There": User-centric Wireless Image-based Sensor Networks

This Sensor proposal focuses on addressing the limitations of large scale wireless networks of
imaging sensors, namely limitations of sensor power and network bandwidth and human limitations
in the capability to absorb and integrate large amounts of image data. The ideal system provides
the user with an integrated view from the multiple imagers, providing the feeling of being there
along with the capability to navigate the space while allowing the network to run unattended for
long periods of time. Achieving these goals requires a cross-layer design that encompasses all levels
from the application to the hardware.
Intellectual Merit: We propose developing adaptable low power imagers, distributed image
fusion algorithms, and an overarching sensor management protocol. The imagers will be able to
capture scenes with adaptable resolution, both spatially and in terms of image bit-depth, and
perform compression for a fraction of the power required by existing systems. To present the
image data to the user in a more integrated fashion, we will develop image mosaicking algorithms
that work with uncalibrated cameras and non-planar scenes. Finally, we will develop intelligent
sensor management techniques that use application-level information to appropriately configure the
sensors and the network itself.
Broader Impacts: (1) Providing a being there experience will have a profound impact on
distance-based viewing applications, from surveillance to tele-presence. (2) The PIs are committed
to training students and will integrate this research with their teaching. (3) The cross-disciplinary
nature of this research and the potential for high societal impact will hopefully attract students
from under-represented groups. (4) The PIs will develop a sensor network tutorial and use this
with the demonstration image-based sensor network to spark the interest of the community in this
exciting field of study.